A Spatial Analysis Laboratory For Geography

The Department of Geography and Planning is establishing a microcomputer laboratory to support the teaching of cartography, and spatial analysis by integrating microcomputer program modules into currently existing courses. The laboratory is improving the student's spatial analysis skills in cartography, quantitative methods and decision-making. The project is producing teaching